Amplituhedra and Origami

Scattering amplitudes are central objects in quantum field theory, but standard methods for computing them often produce expressions that are much more complicated than the final answer. The amplituhedron was introduced to explain this phenomenon geometrically: different recursive expansions should correspond to different triangulations of a single positive geometric object, with spurious singularities canceling along internal walls. This project is based on a recently discovered connection between the amplituhedron and flat-foldable origami crease patterns. The goal is to use this connection to give rigorous proofs of conjectures about scattering amplitudes and, conversely, to use ideas from scattering amplitudes to study geometric realizations of planar graphs arising in statistical mechanics. Graduate students will be trained as part of this project.

A central starting point for the project is the PI's work on the BCFW triangulation conjecture at all loop levels, in both momentum and momentum-twistor space. The project will develop the geometric and combinatorial structures arising from this work and apply them to further problems concerning amplituhedra, scattering amplitudes, and origami crease patterns. The main ingredients are the dimer model on planar bipartite graphs, discrete holomorphic functions and Kenyon–Smirnov primitives, T-duality, and an origami reconstruction algorithm obtained from the BCFW recursion. Particular directions include punctured positive Grassmannians, canonical differential forms, and the symmetries of amplituhedra and origami crease patterns.